Olfactory Receptors of Insect Antennae

Fundamental for the sense of smell is the molecular binding of odorant molecules to appropriate receptor molecules in chemosensory organs. Molecular techniques recently have allowed identification of the genes encoding odorant binding proteins in the vertebrate nose, but we know very little about such genes in invertebrates. Insects have highly sophisticated chemosensory antennae for detecting odorants, but we know very little yet about the molecular receptors used by insects, to compare with vertebrate olfaction. This project uses molecular biology and antibody labeling techniques to isolate the genes for olfactory receptors in the model system of a moth antenna. Results will be extremely important for understanding insect olfaction, and so have will impact beyond neuroscience to evolutionary and environmental biology and to agriculture.